RUI: Enhancing VLSI Circuit Yields Through Identifying Design Sensitivities

This grant funds the development of a software tool for the statistical analysis of integrated circuit failures. The tool will be used on existing failure rate data to locate unpredicted combinations of circuit parameters that produce failure. Statistical methods are necessary because of the randomness in failure data and the very large number of parameters which interact to as yet poorly understood ways. These parameter combinations yield insight on the nature of those interactions. This insight will be systematized using artificial intelligence techniques.